SBIR Phase I: Satellites in Low Earth Orbit as a Learning Tool

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is to support development of a Science, Technology, Engineering, and Mathematics (STEM) workforce. With the recent successes of space missions to other planets, space-based STEM learning tools will attract the attention of teachers, students, parents, and the public. This project proposes a system to teach middle-school students about analysis, design, building and testing of small satellites. The system uses space-based systems as a compelling context to teach STEM concepts and methods.

This Small Business Innovation Research Phase I project creates STEM insights using a satellite as the context. For instance, a major challenge is accommodating the payload into a small stowed volume. Miniaturization is sometimes a solution but may be limited by the physics. For example, if a communications antenna exceeding the satellite size is desired, it must initially stow into a volume only on the order of a 10 cm cube. Following stowage, it must be deployed on orbit reliably and with an accurate and precise shape. The proposed lesson plan includes: preliminary concept design of a student-accessible small satellite, a teacher and student step-by-step lessons workbook on introductory remote sensing from space, physics of satellite orbits, and detailed software specifications to use gaming approaches for educational plans.